U.S.-France Cooperative Research: Theory and Practice of Parallel Linear Algebra in Computer Algebra

This three-year award provides support for US-France cooperative research on the theory and practice of parallel linear algebra in computer algebra. The collaboration involves research groups led by B. David Saunders at the University of Delaware and Gilles Villard at the Institut National Polytechnique in Grenoble, France. The objective is to develop parallel solutions for a number of problems in symbolic linear algebra. These problems include the solution of large sparse linear systems over finite fields and the computation of matrix normal forms over polynomial domains and over integers. The groups have complementary expertise in implementation and in algorithm development and analysis. The project will produce an effective, distributable code for high performance computing.